Localized Congestion Control Strategies for Network-wide Performance Guaranties

9406415 Tassiulas Research will be conducted on congestion control strategies for providing network performance guarantees on end-to-end loss and delay. The goal is the analysis of networks with general topology and multiclass traffic, and the design of simple and effective congestion control strategies. The study will also consider certain specialized topologies (ring with spatial reuse) as well. The focus of the research will be particularly on the interaction at the network level, of localized control schemes acting at the link or single node level. Both deterministic and stochastic arrival models will be considered. Rigorous analytical techniques and simulations will be employed for the analysis and evaluation of the congestion control algorithms. Special attention will be given to the inherent practical constraints of high speed networks and the limitations they pose on possible congestion control strategies. The impact of the proposed research will be the provision of new congestion control schemes, of guidelines for the design and evaluation of congestion control strategies and of enhanced knowledge, and understanding of the impact of distributed control strategies on network level performance. ***